Federal Cyber Service: Expanding Capcity in Information Assurance Curriculum

This joint project expands capacity in Information Assurance education at University at
Buffalo (UB) via new educational materials and laboratory development and at Genesee Community College (GCC), through faculty training and adaptation of exemplary IA materials into their courses. A multidisciplinary approach is taken for IA expansion by considering topics from computer science and engineering, mathematics, management sciences and legal and ethical studies with the goal of driving students to become future INFOSEC problem solvers and training them to derive solutions to a host of problems of national significance.